The Cold Fresh Pulse: A Recent Extreme Event in the Northwest Atlantic Shelf-Slope Region

A large-scale anomaly of cold, fresh water - the Cold Fresh Pulse - swept across the Northwest Atlantic shelf and slope in 2024, disrupting marine ecosystems and causing substantial economic losses for coastal fisheries. This extreme event marked a sharp departure from the ongoing trend of regional warming and salinification. Despite its societal and ecological impacts, the origins, dynamics, and predictability of the Cold Fresh Pulse remain poorly understood. This project aims to investigate the event’s spatiotemporal structure, dynamical drivers, and broader-scale connections using a combination of in situ observations, satellite remote sensing, and high-resolution regional ocean modeling. The analysis will target key processes such as shelf-slope exchange, upstream freshwater advection, and the relative roles of the Gulf Stream and Labrador Current systems.

This work will address a fundamental gap in our understanding of extreme hydrographic events along western boundary marginal seas and their dynamical coupling with basin-scale processes. By combining observational analysis with numerical model diagnostics, the project will disentangle the competing roles of shelf-origin versus slope-origin processes, test hypotheses regarding advective drivers of salinity and temperature anomalies, and improve mechanistic understanding of shelf-slope interactions in the Northwest Atlantic. The project’s integrative approach will provide a benchmark case study for assessing the impact of large-scale variability on regional circulation and ecosystem conditions, with implications for predictability.